PPD/DP: Working with Biotechnology

The "Working with Biotechnology" is a Demonstration Project that strengthens and deepens the highly successful activities of "Biotechnology Works!", a summer institute in immunology and genetics for students with disabilities and their high school teachers. The projected outcomes of the Working with Biotechnology project are to effect long-term changes in the: 1) participation of persons with disabilities in the sciences; 2) methods, materials, and curricula used in high school science classes, particularly in chemistry and biology; 3) practices and preparation of high school science teachers; and 4) practices and preparation of high school guidance counselors. The intended impact of this project will be that persons with disabilities will enter science careers and that new discoveries will be made in science that will benefit humankind. This project should have a long term impact on the number of students with disabilities who take advanced science courses in high schools and in higher education, the number of students with disabilities who pursue careers in science, the practices and preparation of high school science teachers, the practices and preparation of high school guidance counselors, and high school science curricula and instruction. Over a three-year period, this project will work intensively and comprehensively with high school students with disabilities, their science teachers, and high school guidance counselors in Maine, New Hampshire, and Vermont to pilot, develop, refine, and disseminate curriculum materials, science laboratory materials, and career development information. The following activities (inputs or objectives) will be conducted: extend curriculum adaptations for students with disabilities in immunology and genetics that were developed during Biotechnology Works! refine curriculum adaptations for students with disabilities in immunology and genetics that were developed during Biotechn ology Works! field test curriculum and adaptations through two summer institutes in 1998 and 1999 in immunology and genetics for high school students and high school science teachers mentoring of high school science students mentoring of high school science teachers develop curriculum materials and information for high school science teachers prepare career development materials and information for high school guidance counselors on promoting and encouraging the participation of students with disabilities in science careers intensive dissemination of materials and information through the World Wide Web, workshops, listserves, press releases, national conferences, journal articles, and the ERIC Clearinghouse.